Membranes in the Control of Chromosomal Replication

9408830 Crooke Bacterial DNA replication is carefully controlled at the initiation stage , possibly by the regulation of the essential activity of DnaA protein. The cellular membrane has long been hypothesized to be involved in chromosomal replication, with accumulating evidence that indicates that membranes have a profound influence on DnaA protein. Escherichia coli membrane liposomes can convert an inert form of purified DnaA protein into a replicatively active form. Characterization of the membranes has identified fluidity and acidic phospholipids as essential features. The importance of membrane fluidity for this activation has been seen in vitro, and for DNA replication in vivo. The long term goal of this research is to elucidate the physiological significance of the influence of membranes on chromosomal replication. To directly test the hypothesis that membranes participate in the regulation of DnaA protein activity, the following specific objectives were addressed: 1. Subcellular localization of the DnaA protein. Localize DnaA protein within the cell by subcellular fractionation and electron microscopic immuno-thin sectioning. Determine whether a flux in the cellular location of DnaA protein between the membranes and the cytosol occurs during the cell cycle and with different growth conditions, and whether such a change is a means of regulating DnaA protein activity. 2, Replication activities of membrane bound DnaA protein. Investigate the initiation activities of chromosomal origin recognition, strand opening and prepriming complex formation by membrane -bound DnaA protein. Examine how these activities are altered when compared to those known for soluble DnaA protein to gain insight into how membranes influence DnaA protein. 3. Initiation of DNA synthesis in cells with altered levels of acidic phospholipids. Examine the ability of liposomes prepared from cell having varied ;levels of acidic phospholipids to rejuvenate DnaA protein. C orrelate the rejuvenation activity with initiation rates in vivo. Determine whether constitutively stable DNA replication alleviates the growth arrest of acidic phospholipid defiant cells. %%% This work should provide insight into the regulation of the initiation of DNA replication, which is a key control point in the prokaryotic cell cycle and in the determination of eucaryotic cellular quiescence proliferation. Therefore, results of this work may be applied toward other, higher organisms as this proved to be the case with other aspects of cellular events. ***